Nuclear Structure at High Spin

This grant supports research which will treat several aspects of the physics of rapidly rotating nuclei in the mass 80 region. Spectroscopic studies will determine the properties of rotational bands which are rapidly changing as a function of Z and N. Measurements of moments of inertia, electromagnetic transition rates, spin alignment, and signature splitting and inversion will be compared with theoretical models of the structure of nuclei near A=80. A search for electric monopole transitions will be made for heavier, superdeformed, nuclei as well as for nuclei near A=80. In addition, octupole deformation effects will be studied in the actinide region.